Workshop on Antarctic GPS Measurements

This award supports a workshop which would address the application of the Global Positioning System (GPS) to earth science problems in Antarctica. With advances in technology it is now possible to address real-time changes in the morphology of the earth that results from processes such as tectonism (mountain building, earthquakes activity) and the growth or decay of the earth's major ice sheets. Such studies will be most important in bringing Antarctica into the mainstream of global earth-science research. The workshop will: 1) identify and develop the scientific objectives for a coordinated campaign, 2) identify the technical needs associated with such a campaign and 3) draw up a plan for a possible campaign.